Approximation Algorithms for Routing and Network Design

The goal of this project is to obtain new algorithms and insights for
some fundamental problems in graphs and networks with a focus on
routing and network design. A prototypical question in routing is to
find paths that connect a given set of source-destination pairs while
obeying the link and node capacity constraints of an underlying
network. Similarly, a prototypical question in network design is to
build a minimum cost network to support a given communication
pattern. Problems in these two areas are at the core of combinatorial
optimization with many applications. They also play a crucial role in
the development of algorithms and structural graph theory.

The problems considered in this project are NP-hard and the approach
is to obtain polynomial time approximation algorithms as well as
bounds on the integrality gaps of linear programming based
relaxations. Questions central to the agenda are disjoint paths
problems in undirected graphs, buy-at-bulk network design, and
orienteering. In addition to improved algorithms for these and
related problems, new broadly applicable algorithmic techniques are
expected to be discovered. There are several applications that can
directly benefit including VLSI design, bandwidth and resource
allocation in networks, design of optical networks, and vehicle
routing. The project will support and train PhD students and help in
the dissemination of advanced algorithmic ideas via new classes and
lecture notes.